RUI - A Terrestial Annelida and Terrestrial Gastropoda Biodiversity Surv ey of the Philippines

This project is designed to conduct a terrestrial Annelid and land snail biodiversity survey of the northern and western Philippines that will provide information on that nation's rapidly vanishing unique biota. The work will contribute new information towards revisionary systematics of the perichaetine megascolecid earthworms, and provide new knowledge of terrestrial leeches, Enchytraied oligochaetes, and terrestrial gastropods of the Phillipine island archipelago. Field work will consist of numerous collecting trips to the remaining small areas of old-growth lowland and montane rainforest in the northern and western parts of the country. The electronic products of the research will include a web-searchable database on the Philippine Annelida, a large archive of images, identification and study aids, and an interactive key to the earthworms of the archipelago, including common exotic species.